2026 NSF Student Poster Competition & ME Rising Star Celebration at ASME International Mechanical Engineering Congress & Exposition (IMECE); Vancouver, Canada; 8-12 November 2026

This award provides travel support funds for undergraduate and graduate students, as well as early-career faculty and postdoctoral researchers, to attend the 2026 ASME International Mechanical Engineering Congress and Exposition (ASME IMECE), held in Vancouver, British Columbia, Canada, 8-12 November 2026. The travel funds will support 30 undergraduate and graduate students to present their NSF-funded research in a dedicated student poster competition session, and 15 Assistant Professors and postdoctoral researchers to participate in the Mechanical Engineering Rising Star Celebration. Both events are open to all eligible conference attendees. The travel award selection will consider the broad range of institutions represented by students and faculty, as well as the breadth of program areas within IMECE.

This award aims to benefit the nation by preparing a skilled engineering workforce capable of delivering transformative solutions to challenges in their respective fields. Participant support is expected to enhance students' professional, scientific, and technical development through the presentation of NSF-funded research at the largest mechanical engineering conference in North America. Students are expected to improve their communication skills through discussions of their work with leading researchers. Participants will also have opportunities to attend various technical sessions, keynote and plenary presentations featuring technological pioneers, and to network with potential mentors, collaborators, and employers. For early-career faculty and postdoctoral researchers, particularly under-resourced investigators, participation in IMECE and the Mechanical Engineering Rising Star Celebration provides a unique opportunity to build professional network, engage with Rising Star researchers in mechanical engineering, and establish long-term relationship that benefit their career development.

This award is supported by programs within the Division of Civil, Mechanical, and Manufacturing Innovations (CMMI) and the Division of Chemical, Bioengineering, Environmental and Transport Systems (CBET). This award reflects the NSF's statutory mission and has been deemed worthy of support following evaluation under the Foundation's Intellectual Merit and Broader Impacts review criteria.